ARI: Synthesizing Conjugated Polymers with High Scintillation Light Yield

1348403 (Pei) Effective counter measures against potential radioactive and nuclear threats call for a wide-spread deployment of sensors with high-sensitivity isotopic identification of radiation sources. Detectors providing gamma ray spectroscopy and neutron and gamma discrimination are keys in nuclear sensing. This project aims to develop a new polymer scintillator that exhibits high sensitivity comparable to inorganic crystals while maintaining an extremely low production cost. The scintillators could be widely deployed at the nation’s ports and large public venues to deter security threats. Current radiation detectors are mostly based on single crystal inorganic semiconductors or scintillators, none of which satisfy the demanding requirements of high sensitivity, energy resolution, fieldability, and low cost. This proposal aims at developing a fundamental approach to the synthesis of conjugated polymer monoliths with scintillation performance comparable to inorganic single crystal scintillators. The monoliths can be synthesized by thermosetting polymerization in a mold at extremely low production cost. The research will investigate conjugated compounds and polymers with large triplet energy levels as the host material to transfer both singlet and triplet excitons to a blue phosphorescent fluor for high scintillation light yield. Copolymerization of molten solutions will be studied as an effective technique to synthesize bulk-size transparent monoliths with uniform distribution of additives and negligible aggregation. The objective of the project is to demonstrate transparent conjugated polymer monoliths with a target light yield of 100,000/MeV, an improvement of almost 10 times that of current commercial plastic scintillators. Sensitizing agents with high absorption cross-sections for neutron particles and gamma rays will also be investigated for high sensitivity and neutron-gamma pulse discrimination. The work is based on preliminary research on transparent polymer monoliths with a measured light yield that is already 4.6 times that of a commercial plastic scintillator. The proposed conjugated polymer scintillators with high scintillation light yield and low production cost will open up a wide range of new applications important to homeland security, medical imaging, and space exploration. The research findings will be rapidly disseminated, and the technology developed in the project is targeted to be transferred for rapid commercialization. The project will have impact on education and mentoring of students from high schools up to doctoral candidates. Education and training of undergraduate and graduate students with dual specialties of materials science and nuclear-material interactions is part of the project activities. Graduate students and postdoctoral fellows will have the opportunity to intern in the collaborating national labs to gain firsthand experience with radiation detection.